Function Theory and Topology of Complete Manifolds

DMS-0072181
Jiaping Wang

In this project, the principal investigator proposes to
study the interactions between the symmetries of a complete
manifold and the behaviors of various analytical objects
on it. More specifically, he proposes to link the structure
and the size of the covering group with the polynomial
growth harmonic functions and the spectral data on the
covering space. The main objectives of this project include
deriving topological information about a (noncompact)
manifold via analytical approaches and furthering the
understanding of how the symmetries of the space affect
the behavior of solutions to various geometric differential
equations, which is one of the main themes of the geometric
analysis.

This project is intended to study how the behavior of
the solutions to differential equations is related to the
global structure and shape of the underlying space with
partial symmetries. It is expected to both enhance our
understanding of the geometric-analytic structure and have
direct implications to various fields including possible
applications in industry.